Dynamics of Spin Systems

9312252 Muller This proposal concerns the theoretical investigation of the dynamics of quantum spin systems. It is broken into three related areas: 1) Dynamics of 1D and 2D quantum antiferromagnets. The numerical technique of analysis will be the recursion method which makes it possible to extract information on the gaps in the excitation spectrum, ordering in the ground state, infrared singularities in spectral densities etc. 2) Transport of spin fluctuations at high temperature. Spin diffusion will be studied in classical and quantum systems using a mix of direct simulation and recursion methods. At stake is the controversy over the long-time behavior of spin relaxation time. 3) Quantum chaos in spin dynamics. The spin-boson model will be employed for a study of incipient quantum chaos by looking at the quantum invariants of time averages of non-conserved observables. This allows for direct comparisons with manifestations of Hamiltonian chaos in corresponding classical model systems. %%% The work here involves study of spin (magnetic) systems using a variety of numerical techniques - the principal of which is the so- called recursion method. This method has a rich history in condensed matter thoery but has been applied only recently to spin dynamics. The spin to which we refer is that of electrons in a lattice; usually "tied" reasonably tightly to lattice sites. Of particular interest are the dynamics of spin diffusion and of spin relaxation in model magnetic systems. Lastly, the PI proposes to study the onset of quantum chaos (ie non-integrability) in spin systems. A methodology is proposed to allow comparison between quantum systems and their classical counterparts. ***